Efficient Compilation Issues for Scalable Distributed-Memory Multicomputers

Distributed-memory, massively-parallel multicomputers can provide the high levels of performance required to solve the Grand Challenge computational science problems. Multicomputers offer significant advantages over shared- memory multiprocessors in terms of cost and scalability. Unfortunately, extracting all the computational power from these machines requires users to write efficient software for them, which is an extremely laborious and error-prone process. The distribution of data across processors is of critical importance to the efficiency of the parallel program in a distributed memory system. In this project the problem of automated data distribution in such machines is being investigated. The approach is unique in that it is based on sophisticated cost models of communication and computation that are parameterized by architectural metrics empirically measured for different target machines. Using the cost estimates, data distributions are selected to minimize the overall execution time of the program by maximizing parallelism (while maintaining load balance) and minimizing the amount of communication overhead (by maximizing data locality). Both static and dynamic distribution will be supported in a unified framework to automatically select data distributions which can dynamically change over the course of a program's execution in order to provide scalable parallel performance for large, complex applications. This approach not only has a solid theoretical basis, but is being integrated into a sophisticated compiler which can actually generate code for a variable number of processors supporting all block, cyclic, and block-cyclic data distributions. The compilation techniques investigated in this project will also be integrated with simultaneous support for regular and irregular accesses in parallel applications through a novel interval-based representation. ***